A Workshop Chemistry Curriculum

9450627 Gosser City College requests support for a planning process leading to the redesign and modernization of the undergraduate chemistry curriculum at City College and partner community colleges. The planning will focus on extension of a new teaching model, Workshop Chemistry, piloted at the College with NSF support. The model emphasizes collaborative learning and creates more active roles for students in the teaching and learning processes, moving away from the passive learning of the lecture mode. The preliminary design of course modules that will form the basis of the Workshop Chemistry curriculum is a key aspect of the planning process. The modules can include any combination of laboratory, computer and problem solving work. The project directors will work with faculty collaborators from the senior and community college levels to translate their ideas into module outlines. The outcome of the planning phase will be a detailed plan for specification of the course modules and how they will be integrated into the curriculum. The planning process as well as the final project will involve as partners faculty in other science disciplines, engineering, health sciences, architecture and education, as well as individuals from industry; this will facilitate the design of a curriculum which promotes students' ability to apply chemistry concepts to other fields.